Symposium on Antarctic Continental Margin

9319220 Cooper This award supports participation of US investigators in the ANTOSTRAT Symposium which will bring together seismic stratigraphers, sedimentologists, glacial geologists, and paleontologists to develop a state-of-the-art picture of the continental margin stratigraphy of Antarctica. Investigators sponsored by the United States Antarctic Program have been major contributors to geologic models for the evolution of the Antarctic continental margins. This symposium is the culmination of scientific collaborations that have been developed under the aegis of the Scientific Committee on Antarctic Research and that have been realized through several ANTOSTRAT Regional Working Groups. This symposium is expected to produce a comprehensive atlas of seismic stratigraphy accompanied by interpretations of the glacial and marine geology several large segments of the Antarctic continental margin. ***